Contact topology of 3-manifolds

Tight contact structures are closely related to the topology of the
underlying 3-manifold. They provide bounds on the genus of the surface
representing a homology class, are related to taut foliations on
3-manifolds and to the topology of symplectic 4-manifolds, to
Seiberg-Witten theory and Floer homology. Matic proposes to further
analyze contact manifolds using cut-and-paste techniques developed in
collaboration with Honda and Kazez. The main part of cut-and-paste
contact topology are gluing theorems. Matic proposes to keep studying
the gluing techniques and to apply them to various open questions, like
the existence of tight contact structures on Haken homology spheres.
Here the techniques from foliation theory fall short. There are in
fact recent examples of Haken homology spheres that do not carry taut
foliations. As a result of her investigations she hopes to be able to
better understand a basic question: what information about the topology
of the 3-manifold can we get from existence of a tight contact
structure.
Three-dimensional manifolds are modeled on the three dimensional space
we live in. Questions in symplectic and contact geometry were
originally motivated by dynamical questions in physics and contact
structures arise naturally in hydrodynamics. The proposed research has
the potential to produce new results applicable to these questions.